Inhomogeneities in Source Zone Properties and Rupture Characteristics Along the New Madrid Fault

This research is to utilize the Saint Louis University seismometer network to study heterogeneities in the New Madrid intraplate earthquake zone. A new series expansion method will be use to develop path Green's functions on source locations from small, less than magnitude 2.5, earthquakes. Then, the Green's function method will be applied to larger earthquakes in the New Madrid region to study spatial/temporal variations in rupture properties. A second investigation will utilize the S-wave coda to map three-dimensional Q structure in the New Madrid seismic zone. These studies should provide insights on the nature of heterogeneities within and near the source zone of New Madrid earthquakes. This is important both for knowledge of earthquake processes in intraplate regions and for assessing earthquake hazard. This research is a component of the National Earthquake Hazard Reduction Program.